Theory of Nonlinear Elliptic Equations and Systems

Partial differential equations are fundamental tools for describing geometric shape, fluid motion, and the behavior of materials. This project studies difficult nonlinear equations for which solutions may concentrate, develop singularities, or lose regularity. A central goal is to determine when geometric equations have well-behaved solutions and when exceptional behavior can occur. The project also investigates stationary fluid equations in high dimensions and mathematical models of stress concentration in elastic composite materials containing closely spaced inclusions. The research promotes the progress of science by developing rigorous methods for important classes of nonlinear equations that remain poorly understood. These methods can strengthen the mathematical foundations of fluid mechanics and materials science and can support future advances in modeling and analysis. The project serves the national interest by expanding fundamental scientific knowledge, improving analytical tools relevant to physical systems, and training graduate students in advanced mathematics. Students participate directly in research, specialized courses, seminars, and professional development. The investigator also supports broader dissemination through the Joint Princeton-Rutgers Seminar on Geometric Partial Differential Equations, the Joint Princeton-Rutgers Seminar on Analysis of Fluids, and other research activities that bring together students, early-career researchers, and established scientists.

The investigator studies nonlinear elliptic equations and systems arising from conformal geometry, incompressible fluid mechanics, and composite materials. In conformal geometry, the project addresses compactness for the Yamabe problem under the assumption that the Weyl tensor and its derivatives up to second order do not vanish simultaneously at any point of the manifold; compactness for the sigma_2-Yamabe problem when the Weyl tensor is nowhere zero; and solvability of the sigma_k-Yamabe problem for k greater than or equal to 3 and less than n/2. Related objectives include classification of positive solutions of the critical equation on higher-dimensional Heisenberg groups; analysis of singular sets for the sigma_k-Loewner-Nirenberg problem; regularity and singularity theory for conformally invariant fully nonlinear equations; and interior regularity questions for uniformly elliptic conformally invariant equations. The approaches include compactness and blow-up analysis, construction of counterexamples, comparison principles, classification and singularity analysis, and refined derivative and weighted estimates. The project seeks both compactness proofs and counterexamples, thereby clarifying the boundary between regular and singular behavior. For stationary incompressible Navier-Stokes equations, the investigator seeks smooth solutions in dimensions at least 16 and studies the stability, instability, existence, uniqueness, and classification of minus-one-homogeneous solutions with isolated singularities. The expected contributions include new existence, compactness, classification, regularity, and sharp-estimate results, together with analytical techniques applicable to other nonlinear equations arising in geometry and physics.